Northern Women, Northern Lives. An International Conference on Women in the Circumpolar North

9403825 Kleinfeld "Northern Women, Northern Lives", an International Conference on Women in the Circumpolar North, will be a forum to gain recognition for the perspectives and roles of women in the Arctic and Subarctic region. Topics of discussion will include family, worklife, health, leadership, public policy, economic development, environment, culture and education. Presentations will focus on northern research and tools that are relevant to address contemporary concerns. The objectives also include the inauguration of an International Arctic Women's Research Network. ***